Robotic Assembly Cell

Engineering - Other (59)

This project is developing a robotic assembly cell, the main components of which will be a six-axis Kuka KR6 robotic manipulator and a PowerCube Programmable Motion System. The robotic assembly cell will be used for three types of projects. The first is focusing on the programming and application of the Kuka manipulator as well as kinematic modeling and control of the PowerCube system. These activities are being incorporated into robotics as well as introductory engineering courses. The second type of project is focusing on automated assembly and robotic applications for use in manufacturing and senior design courses. The third type are interactive robotic and manufacturing application projects being jointly conducted by university engineering/computer science students and high school students in Oakland University's existing Remote Design/Manufacturing Program. The Remote Design/Manufacturing Program currently involves Oakland University's School of Engineering and Computer Science and three southeastern Michigan K-12 school districts.